MII: A Program for Research in Computing and Information Sciences and Engineering (PRECISE)

9977071
Vasquez, Ramon E.
Rodriguez, Domingo
University of Puerto Rico at Mayaguez

A Program for Research in Computing and Information Sciences and Engineering (PRECISE)

PRECISE expects to significantly strengthen the current environment in Computing and Information Science and Engineering (CISE) through more diverse, competitive, and sustainable research. The award will contribute to implement the multi-campus Ph.D. model as an academic program. While increasing the participation of women and minorities in graduate education, the project will facilitate, enhance, and intensify research in CISE areas.
The project will reinforce and support the following research groups:
Scientific Computing Group,
Software Sciences and Engineering Group, and
Automated Information Processing and
Digital Systems Implementation Group.

These groups conform the core of the CISE multidisciplinary research environment, foster the formation of new multidisciplinary groups, and partner with industry, government, and universities in research projects of mutual interest. A Computing Research Seminar will be established as a formal forum for the discussion of common grounds of CISE areas, and the presentation of frontier research. A Computer Research Laboratory will be developed to support the proposed research and training activities.

Through this effort, the University of Puerto Rico at Mayaguez is expected to develop further its computing science and engineering research capabilities involving minority students in greater numbers, paving the way for the conferring of more doctoral degrees to under-represented groups, particularly Hispanic and women in Computer Science and Engineering. It is hoped that through these efforts, the nation might find a successful model that will help in building a better racially and ethnically balanced technological enterprise for the benefit of its present and future generations.